Investigations of the Geodynamo

Bloxham 9526914 The PI proposes to study the dynamo process responsible for the generation of the Earth's magnetic field. The focus of the work is on a numerical investigation of the work is on a numerical investigation of the dynamo process using a dynamically-consistent, three-dimensional dynamo program that the PI has recently developed and tested. The fundamental question of the Earth's magnetic field is generated has only recently become accessible to modeling efforts as a consequence of development of advanced computer technologies. Geodynamo models are also of great interest. In solid earth geophysics because an understanding of care dynamics is essential to unraveling the complex process in the deep interior.